CISE Research Instrumentation: Parallel Computing Development Platform

Eight 4-processor compute engines, a central monitor workstation and associated hardware shall be aquired and used in a specially developed 32- processor multicomputer including custom hybrid instrumentation and performance monitoring features which will be dedicated to support several research projects. These include: * Active Memory Hierarchy (AMH) Architecture and Software Development. * Portable Performance Monitoring. * Portable Parallel Programming Environment. * Parallel Algorithm Development. * Low Latency Multicomputer Interconnection Network. These interdisciplinary projects bring together faculty and students from Aerospace Engineering, Electrical and Computer Engineering, Computational Engineering and Computer Science with a common purpose of accelerating CFS applications. The instrumentation will provide a common platform or hub around which key research issues involving performance optimization, parallel system instrumentation and monitoring, parallel algorithm and program design and parallel programming environments can be synergistically pursued.